Synchrotron-Radiation Endstation for Atomic and Molecular Research with X Rays at the Advanced Light Source

Lindle The Advanced Light Source (ALS) is a third-generation synchrotron-radiation facility that offers unprecedented opportunities for research in atomic and molecular science. The new source will produce tunable radiation of high intensity and uniquely high brightness in a continuous wavelength range from the ultraviolet to hard x-rays. This proposal is for construction of an end station on an ALS beamline specifically designed for x-ray spectroscopy research on free atoms and molecules. The proposal is presented by a research team of 16 investigators from 12 universities and 4 national laboratories, who plan to use x- rays in a diverse program of fundamental investigations of chemical and physical phenomena that are of primary importance to the understanding of core-level processes in atoms and molecules.